SGER: Amplification of El Nino-Southern Oscillation (ENSO) Climate Effects in Estuaries

Jay

This project will investigate El Nino/ Southern Oscillation (ENSO) effects on the estuarine circulation through the
analysis of suspended particulate matter (SPM) budgets. An important justification for the study is the observed
correlation of West coast river outflows with ENSO cycles. The ENSO effects appeared to be amplified in fluvial
SPM discharge since the latter typically varies non linearly (with a power greater than one) with the river discharge.
The hypothesis that estuarine circulation will amplify ENSO signals in river outflow and SPM transport by altering
the residual flow and the hydrodynamic trapping of particles will be tested in the Columbia River using historical
and recent (1997-98 El Nino) data sets.